AAAI-15 Support for Robotic Activities

The AI and Robotics research communities have benefitted from collaborations over the past several decades. However, the recent acceleration in the development of new algorithmic techniques in both fields and new hardware in robotics provide many opportunities for high-impact collaborations. The PIs are requesting funds to take advantage of this opportunity by holding the first of what is expected to be a series of meetings to encourage collaboration between these two communities. The first meeting will be held at the most important AI conference, AAAI-2015, in Austin TX. There will be events that bring some of the most accomplished researchers from Robotics to AAAI and also events that will be exciting school children and undergraduate students.